Diffusion and Multiple Equilibria

The proposed research agenda consists of three broad parts. The first part involves a largely empirical investigation of the diffusion of technological innovations, and how this diffusion affects the aggregate behavior of output. More specifically, it is concerned with explaining the time-series behavior of GNP in terms of the time path of innovations and the speed with which they are diffused. This is expressed as a stochastic reduced- form equation relating current innovations in GNP to past innovations with various lags. Cross-section country data on GNP growth rates and innovation activity, for example, as measured by patent applications, are then used to estimate the parameters of the equation. The second part of the study consists of a theoretical development of three models regarding the adoption of technological innovations by firms, and of the process of diffusion of technical knowledge. The first of these models seeks to explain why bigger firms are usually the first to adopt a new innovation. The other two models deal with frictions in the spread of information, with an emphasis on personal contact. The final part of the research involves an econometric investigation of issues arising from the presence of multiple equilibria. In this setting, the parameters of preferences and technology generate a set of equilibria and then an outcome is chosen from this set. The question at issue is how to estimate the Markov process for selection given that part of the movement in equilibrium will be due to the presence of exogenous shocks. This fundamental research bears in a very important way on the general topic of how shocks to technology impact on both long- term growth and on cyclical fluctuations. The technological shocks, on which the research is focussed, are those that result in permanent additions to our stock of knowledge. Since the stock is much too large for anyone to be familiar with, its diffusion will determine its effect on output, productivity, investment, and other aggregates. It is the thesis of the investigator that such innovations occur largely at the firm level, and then spread throughout the economy in ways that despite their centrality are still imperfectly understood. Work already completed and the further work projected by this proposal, constitutes frontier research on the topic, which is of critical importance in the modern theory of "endogenous growth", and in modern business cycle theory.